Observational and Modeling Studies of the Structure and Dynamics of Jet Streaks

Jet streaks, small areas of accelerated flow embedded in the broader rapidly moving jet streams of the upper troposphere, are associated with rapid cyclogenesis, heavy precipitation, and severe convective storms; hence, are of major interest for weather forecasting. The principal investigator, Dr. Keyser, will explore the nature of jet streaks, looking at their three-dimensional structure using observational and diagnostic analyses and employing several models - a quasi-geostrophic and primitive equation channel models. He hypothesizes that polar-front jets often result from the superposition of upper level monopolar or dipolar vortices of sub-synoptic dimensions on the large-scale jet stream. The vortices "induce" jet streaks. The investigation will focus on the three-dimensional structure of the jet streaks, along with the associated rotational and divergent ageostrophic circulations and vertical motions.